Gulf Coast Basinal Mudstones: Sources or Sinks for Diagenetic Components?

Mudstones constitute most of the fill of sedimentary basins, yet they are the least understood of all sedimentary rocks. They are "blamed" for virtually all reactions that cannot be easily explained, based on the examination of other rocks. For example, they have been advanced as sources for Pb-Zn mineralization, for SiO2, Fe++, and Mg+ in sandstone cements, and for H+ for subsurface leaching of sandstones. Currently available data in Gulf Coast Cenozoic sections dispute all these inferences. Using available drill cuttings, we propose to characterize changes in: 1) whole-rock major and minor (esp. Sr, Ba, B, and Li) elemental and isotopic (esp. O, Sr, B, and Li) chemistry, 2) carbonate mineralogy and geochemistry, 3) feldspar mineralogy and geochemistry, and 4) quartz morphology and geochemistry. We will quantitatively document changes in mudstones with depth in South Texas where extensive data on sandstone petrography and geochemistry, and formation water geochemistry, already exist. By studying a dip section through the growth-faulted depocenters, we can minimize the vagaries of local and temporally restricted sedimentation. Quantitative material balances in this area will enable us to assess the importance of mudstone diagenesis to the diagenetic evolution of sedimentary basins and assess the magnitude of import form underlying and export to overlying strata.